Doctoral Dissertation Research: Understanding the Long-Term Drivers of Community Reconciliation in Post-Conflict Societies

This project examines how communities adapt to new lives in post-conflict conditions. The investigators specifically study the different impacts that international and local policy commissions and social and community-based efforts have on peace and reconciliation after conflict. In addition to providing scientific training for a graduate student in anthropology, the research findings will be made available to policy and legal agencies that address the needs of families and communities in post-conflict societies. The researchers will also produce visual materials and films that will enhance public knowledge of the most effective strategies for post-conflict rebuilding and healing.

In order to test several social, economic, and legal drivers of post-conflict rebuilding and adaptation, the researchers will conduct qualitative, ethnographic research that includes semi-structured interviews, participant observation, and visual and online ethnography. The broader research findings will contribute to global studies of transitional justice, legal anthropology, post-conflict peacebuilding and reconciliation, and the anthropology of human rights.